Shapes of Symplectic and Legendrian Submanifolds

Abstract

Award: DMS-9971374
Principal Investigator: Lisa Traynor

A central theme throughout all branches of symplectic geometry is
the importance of the special symplectic or lagrangian
submanifolds of a symplectic manifold and of the special
legendrian submanifolds of a contact manifold. This proposal
outlines a number of projects that explore the interesting fine
line between the rigidity and flexibility of the shapes of these
special submanifolds. Projects include studying the possible
efficiency of symplectically packing subsets of euclidean space
or cotangent bundles of tori and studying the possible evolution
of symplectic balls or legendrian links and tangles under
symplectic or contact transformations. Techniques include
combinatorics and homology theories defined via generating
functions and pseudo-holomorphic curves. In addition,
connections between symplectic geometry and biology are proposed
based on observed coincidental behaviors of legendrian curves and
DNA.

Symplectic and contact geometry have their origins in physics:
they are the setting for understanding spinning tops, mechanics
of underwater vehicles, and planetary trajectories. A basic
problem is to understand how a system can evolve under the
natural motions imposed by a contact or symplectic structure.
One approach to understanding the dynamics is to start with a
standard object such as a ball or a looped piece of string and to
study the possible configurations that this basic shape can
attain. The results can be quite surprising. For example,
although many deformations of a ball are possible, a classical
result is that it can never be squeezed in particular directions.
This is a geometric version of the Uncertainty Principle from
physics. This project aims is to give further insight into the
flexibility and rigidity of these canonical transformations.